Interdisciplinary Materials Research

The Materials Research Laboratory (MRL) at the Massachusetts Institute of Technology supports a broad range of interactive and interdisciplinary materials research in four primary thrust areas. Research on transition metal oxides addresses high-temperature superconducting materials and mechanisms, focussing primarily on the magnetic structure and transport properties of pure and doped single crystal cuprate superconductors. Researchers in the phases and phase transitions group are examining phase transitions in structured fluids and the development of statistical mechanical models for their theoretical description. The thrust area on synthesis, properties and morphology of novel polymers addresses the molecular structure and microscopic morphology of polymers and their associated electrical, optical and mechanical properties. A new thrust on structure and transport properties of grain boundaries and interfaces aims to determine the intrinsic structure and properties of high-angle grain boundaries in ionic compounds and oxide ceramics. The MIT MRL also supports the development, operation and maintenance of major central research facilities including a surface science facility operated in conjunction with the Harvard MRL. It also provides seed funding for exploratory research and supports educational activities that include the provision of research experience for undergraduates. The program currently involves about 29 faculty members and senior personnel from seven academic departments, 10 postdoctoral research associates, 41 graduate students and 20 undergraduates, and supporting scientific and clerical staff. The MIT MRL is directed by Professor Bernhardt J. Wuensch.